An Integrated Approach to Teaching the Languages of Programming and Mathematics in the Computer Science Curriculum

Computer Science educators are faced with the dilemma that one cannot do computer science well without being a good programmer, nor can one understand the underpinnings of computer science without a strong background in mathematics. The goal of this project is to use the first three courses of the computer science major to make students fluent speakers of mathematics and programming, and to expose them to both functional and imperative language paradigms so that they can effectively learn computer science. Computer Science I and Discrete Mathematics, taken in the first semester, will carefully articulate the strong ties between mathematics and programming through an integrated curriculum, a functional programming language and a shared laboratory. Computer Science Il, taken during the second semester, will bridge the gap between the mathematical perspective of the first semester and the implementation of an algorithm as a sequence of instructions through an imperative language. All courses will also provide a strong foundation for the computational concepts that are considered in advanced courses. The approach used exposes students to theoretical concepts in mathematics and computer science without having these concepts walled off as abstractions unrelated to applications, and it gives students extensive programming experience without neglecting important theoretical concepts that are the foundations of correctness and the basis for generalization and creative work.